Connection to NSFNET

9312180 Setterlind Eckerd College requests support from NSF for connection of their campus networks to SURAnet. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Eckerd College a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The college has experienced a growth in auxiliary programs that has added value to the basic mission that the college serves to aid the education of all persons of all ages. The networking plan at Eckerd College is the foundation for uniting all the disciplines and campus groups. ***